I-Corps: Automated As-is Facade Modeling of High-rise Buildings Using Drones and Artificial Intelligence

The broader impact/commercial potential of this I-Corps project is the development of a high-rise building façade inspection technology. The new techology is based on the development of an automated, high-rise building façade modeling technology that uses drones and artificial intelligence (AI) algorithms. The application has financial promise because it addresses the deterioration of building infrastructure. The proposed project may improve building inspection, maintenance, renovation, and repair while also educating and training the next generation of skilled workers.

This I-Corps project is based on the development of an automated, as-is, high-rise building façade modeling technology using drones and artificial intelligence (AI) algorithms. To begin, a drone with a spiral path is employed to capture building exterior images and photogrammetry is used to conduct 3D reconstructions and create mesh models for the scanned building façades. High-resolution façade orthoimages are generated from mesh models and pixelwise segmented by an AI model. A combined data augmentation strategy, including random flipping, rotation, resizing, perspective transformation and color adjustment, is utilized for model training with few labels. The developed technology may transform the way that high-rise building façades will be inspected. Missing façade drawings may be reproduced for maintenance, renovation, and repair operations. This technology may improve communication among building owners, design firms, contractors, material suppliers, and financial institutions while speeding up the design, approval, finance, construction and inspection processes.